RPG: Temporal Stressors and Immunocompetence

9306919 Baldwin Stress is a subject of interest shrouded in ambiguity. Confusion reigns concerning the concept of stress in general and the effect of such a phenomenon on the neuroimmunological system in particular. The ambiguity may be attributed, in part, to the limited number of parametric studies which actually test stress models. Furthermore, there is evidence to indicate that the specific characteristics of the stressful event (e.g., type of stressor, duration of stressor, predictability of the stressor) can produce immunosuppression or immunoenhancement. The overall aim of this Research Planning Grant is to examine one aspect of the stressful event, stressor type (physical vs psychological), on a panel of immunological and neuroendocrine parameteres. The physical stressor being examined in this study is voluntary running, and the psychological stressor will be immobilization. The experiments address the following questions: 1) What are the similarities and differences between physical and psychological stress events on immunocompetence? What are the plausible biochemical pathways through which stress-induced immunomodulation occurs? 2) What is the relationship between onset of changes in neuroendocrine markers (catecholamine, corticosteroid, glucose) and immunity? Will the effect differ with respect to stressor type and gender? Both physical and psychological stress have been shown to produce immune effects. Stressful events may differ with regard to specific physiological outcomes, while sharing the same underlying physiological mechanism. The overall expected results are as follows: 1) psychological stress alone (immobilization) will produce the greatest compromise of immune functioning compared to the physical stress of voluntary running, and 2) immunosuppression will be associated with a heightened neuroendocrine response to stress. ***